Mathematical Sciences: NSF-CBMS Regional Conference in the Mathematical Sciences on Scientific Computation; Indianapolis, Indiana; June 26-30, 1989

Professor Richard S. Varga of Kent State University will be principal lecturer at an NSF-CBMS Regional Conference to be held at Butler University, Indianapolis, in June of 1989. The lectures will describe the interesting recent interplay between very high-precision calculations on supercomputers and mathematically vigorous approaches to long-outstanding mathematical conjectures from such diverse fields as function theory, approximation theory, and classical analysis.